Presidential Young Investigator Awards: Carrier Transport Optical Nonlinearities and Integrated Optoelectronics

Current research focuses on overcoming the speed/sensitivity trade-off present in semiconductor nonlinear materials and devices. Extension of the single heterostructure Schottky barrier concept into a hybrid device is promising for development of simple to fabricate, high sensitivity, high speed devices. Applications research for these devices include optical dynamic random access memory, monolithically integrated passive and active absorbers for mode-locked semiconductor lasers, and spatial light modulators. Optoelectronic integration is a second interest area. Deposition of optical material onto electronic material has been achieved by Dr. Jokerst at Georgia Tech by separating GaAs devices from their substrate (lift-off) and depositing the devices onto Si. GaAs optical and/or electrical devices can be lifted off and deposited onto any smooth material such as glass or LiNbO3. Current projects utilizing this technology include a 512 X 512 element optical phase modulator for beam steering and optical signal processing. Solar cells created through lift-off are another project under investigation. Desirable high power to cost and power to weight ratios exist for lifted-off solar cells since the expensive, heavy substrate is not longer attached to the solar cell and further, can be reused for growth.